POWRE: Contribution to the Understanding of African Climate and its Links to the African Environment

This POWRE grant will support the PI to edit a book on African climate variability. She will also partially author some chapters. The PI is branching to a relatively new field of the role of aerosols in climate with a focus on African climate. The PI will also conduct a workshop on the topic. The work is important because it will further understanding on African climate variability.